"CAREER: Excavating the Dynamical Fossil Record in Elliptical Galaxies: New Directions for Southeast Ohio"

Abstract - Statler A four-year effort in research and educational activities in the newly established astrophysics group in the Physics and Astronomy Department at Ohio University (OU) will be carried out. Particular emphasis will be placed on the new opportunities that will be made available to graduate and undergraduate students and to K-12 students and teachers in the region around OU. The focus of the research component is the origin of elliptical galaxies. Whether they formed through late major mergers of spiral galaxies, by early multiple mergers of many small protogalactic pieces, or by a combination of processes is unclear. The evidence for or against any formation scenario is ambiguous because it is not yet understood what observable dynamical properties of the galaxies are necessary and unique consequences of the possible mechanisms. But the distribution of stars (and, where present, gas) in position and in velocity make up a "fossil record" of the structural layers laid down in the galaxy over time. A variety of activities in observation, modeling, and numerical simulation are described with the intent of reading and interpreting this record. Among these are a groundbased observational program to map the stellar kinematic fields of nearby ellipticals at unprecedented depth, spatial resolution, and accuracy; a modeling program to determine the intrinsic shape distribution; numerical simulations to identify the stellar dynamical configurations implied by various formation processes and to study the origins of kinematically distinct cores; searches for hidden disks or other kinematically distinct components; and spectroscopic and photometric Hubble Space Telescope studies of ellipticals at moderate and high redshift. The educational component comprises graduate and undergraduate research, major revisions to the undergraduate astronomy curriculum at OU, and two significant K-12 outreach initiatives. A school visitation program will be carried out tha t will bring OU scientists into classrooms in the region to foster science involvement and science literacy. Visits will be coordinated with teachers to blend the presentation into the existing lesson plans; supplemental materials for teachers will be developed to assist in class preparation. A summer research internship program that will bring K-12 science teachers to OU and involve them actively in research will be initiated. One teacher applicant per summer, for four summers, will be adopted as a junior member of one of the Physics and Astronomy Department's research groups. Firsthand experience with real science will contribute to better science teaching in K-12 classrooms.